Mathematical Sciences: RUI: Algebraic K-theory

This award supports research in algebraic K-theory. The principal investigator will work on understanding the K-groups of an exact category, as defined by Quillen. One major goal is to build on the recent discovery of a simple algebraic description of the first K-group by finding relations among these elements and doing some calculations. An analog of this description for higher K-groups will also be sought. In addition, the principal investigator will continue to work on Gersten's conjecture. This research is concerned with algebraic K-theory. In a broad sense algebraic K-theory concerns the evolution of concepts from linear algebra such as basis and vector space. This work has significant implications for number theory and algebraic geometry, and promises to make exciting connections between a number of different areas in mathematics.